Engineering Research Equipment: Thin Films for Advanced High Performance Applications

This is an equipment grant for a state-of-the-art sputtering system. This system well used reactive sputtering of refractory films for semiconductor device fabrication and for thin film protective layers for IR filters and fiber materials. This apparatus will greatly enhance the research infrastructure in engineering programs of URI.